Navajo Flat Textile Storage Improvement at the Museum of Northern Arizona

The Museum of Northern Arizona has a unique collection of Navajo rugs and blankets that document a continuum of change in the technological development of Navajo weaving from its Pueblo, Spanish, and Anglo- American influenced roots to its present regional styles. This is one of the best documented collections in the country. It is a collection that is extensively used by scholars who are interested in material culture. Large organic materials such as textiles require special storage favilities. The Museum of Northern Arizona, due to a lack of space and proper shelving has been forced to fold and stack their textiles, causing damage to the objects and making them inaccesible for research. The Museum requires new storage sheving to roll their collection and halt the deterioration. The storage equipment chosen for this project will retard insect infestation, protect the textiles from dust, prevent damage to the fibers from stress due to creases, and redtard photodegr- adation. This equipment will also make the textiles more accessible to researchers. The collections at the Museum of Northern Arizona are important for cintinued research in anthropology. Theyt have great scientific value and the improgvements in storage will sitmulat additonal research.//